Digitization PEN: oMEGA - Online Metrology of Extant Giant Animals for the oVert TCN

This is a Partner to Existing Networks (PEN) award to the Idaho Museum of Natural History to partner with the Open Vertebrate (oVert) Thematic Collections Network (TCN). The oVert TCN is creating high-resolution three-dimensional (3D) data for internal anatomy across the diversity of vertebrate animals. Using computed tomography (CT) scanners at institutional collections across the US, more than 20,000 fluid-preserved specimens will be scanned and made available online for open public use. This PEN complements the oVert TCN program by including vertebrate animals too large to be preserved in fluid or scanned by conventional CT scanners. The oMEGA PEN will use portable surface scanners to provide high-resolution scans of skeletons of large vertebrate animals curated at Harvard, Berkeley, and California Academy of Sciences. The addition of large vertebrates, including whales and elephants, provides an important segment of the animal world to open access collections for researchers and educators. The process of creating this 3D resource will provide training for undergraduate students, and on-site workshops for collections staff. Skeletal models will support TCN activities in creating K-12 STEM lesson plans and 3D-printable resources for the classroom.

The digitized skeletons acquired in this PEN will help fill a major gap in the original TCN and support its research theme on the evolution of vertebrate morphological diversity. By virtue of their large size, vertebrates exceeding 250 kg define upper boundaries of size-dependent anatomical form and function, and therefore push the limits on development and physiology. These skeletal data will provide new opportunities to evaluate gigantism and the tendency of animal lineages toward ever-larger body size. Combined with the other oVert 3D specimens, the TCN's digital collection distributed through MorphoSource and iDigBio will inspire new research questions and provide the raw materials to test hypotheses in a broad range of biosciences.